Theoretical Analyses of Solute Transport in Homogeneous and Layered Aquifers During Remedial Withdrawal Process

Research will be conducted on the movement of water soluble substances in groundwater aquifers. Solutions will be sought for mathematical models that describe solute-transport in homogeneous and layered aquifers. Results of this research may be applied to the rehabilitation of aquifers that are chemically contaminated and to problems of extracting thermal energy from geothermal reservoirs.